Building STEM Teachers' Capacity to Create Authentic and Original Classroom Experiences

This Noyce Track 1 project aims to serve the national need of preparing highly qualified STEM teachers. Additionally, this project will support 21 scholars of biology, chemistry, and mathematics by providing scholarships, mentoring, and professional development activities. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in hands-on STEM teaching.

This project at Caldwell University includes partnerships with Passaic City and Clifton school districts. Project goals include recruiting 21 biology, chemistry, or math undergraduates to become secondary STEM teachers, increasing the retention and graduation rates of STEM/Education majors, and supporting alumni post-graduation. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) What strategies are most successful for recruiting STEM majors to become teachers, and (b) What strategies are most successful for retaining and graduating STEM/Education majors? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce Program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.